Resource Control and Reproductive Success

Behavioral ecology, like other rapidly growing disciplines, has developed a body of theory that is only now being tested experimentally. Dr. Alcock's research, although focused on one group of insects, has broader relevance to the question of how habitat and female behavior interact and how they in turn influence male behavior. This project employs an experimental approach to an analysis of proximate cues and ultimate function in a resource-defense mating system. There have been few experimental studies of the relation between resource control and reproductive success in any animal that engages in resource-defense polygyny. By studying a species of dragonfly, Paltothemis lineatipes, Dr. Alcock will determine what cues males and females use to make decisions about which areas to defend and which areas to use as egg-laying sites, respectively. Then Dr. Alcock will examine the effects of variation in the quantity of resources within territories on the attractiveness of different sites to egg-laying females and territorial males. The results from experiments using resource- poor and resource-rich locations will be used as a foundation for a study of a population of marked males to determine if individuals distribute themselves in ways that reduce the variation in daily or lifetime reproductive success. The results of Dr. Alcock's research project will stand as a test of the generality of findings on resource manipulation in a damselfly species with a similar resource-defense mating system. The project also directly examines the fundamental prediction of modern models of the evolution of mating systems, namely that the distribution of resources will determine patterns of female availability and thereby drive the evolution of male competitive tactics.